Conference: Biological Consequences of Alternatively Structured DNA to be held in Steamboat Springs, CO on July 5th, 2010

DNA molecules in a cell usually conform to the popularly described "spiral staircase" double helix structure, which is called "B-form" DNA. However DNA can transiently assume a variety of other shapes that can have deleterious consequences for cells and organisms. Non-B form structures are provoked in largely unknown situations and due to their characteristic instability, are difficult to detect. In some cases, the destructive effects of an alternative DNA structure are suspected only after the fact, when a large-scale genomic change is observed. Barriers to the study of alternatively structured DNA in cells have been so impenetrable that to the present day we lack basic knowledge. Consequently the ways in which alternative DNA structures might influence the aging process or produce genetically inherited defects has attracted little experimental attention. This can be hard to appreciate because the analysis of alternative DNA structures in isolation (outside of a cell) is a well-developed field where creative applications in nano-engineering and medicine are being energetically pursued. The meeting unites researchers from diverse areas of science -such as physics, medicine and molecular biology- who share an interest in alternatively structured DNA. "The Biological Impact of Alternatively Structured DNA" conference thus provides a unique opportunity for synergism, bringing together the questions, methods, and applications of different disciplines to generate fundamental insights into the biology of non-B form DNA.

"Biological Impact of Alternatively Structured DNA" will take place over a five-day period starting on July 5th, 2010. The meeting was first held in 2008. Then as now, a major goal was to fulfill an educational role. The previous conference seemed to be effective in coalescing interest among scientists and was summarized in a high-profile journal. An increasing number of articles have appeared on the subject of non-B form DNA, and particularly its in vivo effects, which suggests that this topic is coming into its own, and the Conference is especially timely. Some long-standing technical problems are being tackled, and overlooked scientific questions are at long last beginning to be addressed. Significantly, evidence continues to accumulate of non-canonical DNA structures that are involved in human diseases. The 2010 meeting, by highlighting new insights and exciting research, will continue to demonstrate to the scientific community that there are interesting fundamental discoveries yet to be made in this area. Younger investigators have been encouraged to apply, and are impressed by the fact that an entire meeting is dedicated to the biological implications of non-B DNA structures. The conference will demonstrate to the interested early-career scientist that working on a neglected area of DNA metabolism is valid and that a commitment to this area of reasearch will be rewarding. Ultimately basic discoveries fostered by conferences such as this can translate into inventive strategies for diagnoses, amelioration and treatment of disease.